A Conference on Advances in Control of Nonlinear Distributed Parameter Systems, October 29 - 31, 1999, College Station, Texas

9815632
Chen

This award will support participants at a Conference on Advances in
Control of Nonlinear Distributed Parameter Systems to be held at
Texas A&M University from October 29-31, 1999. The conference
will focus on discussing, examining, reviewing, and identifying the
state-of-the-art, questions, issues, challenges, opportunities, and new
directions in the research of control systems governed by nonlinear
partial differential equations. This area is driven by technological
developments in smart materials, active actuators and sensors, as well as
by advances in the mathematical theory of nonlinear partial differential
equations and dynamical systems. Major themes will include both
theory and applications, including smart materials, nonlinear plates and
shells in structural control, control of fluids, nonlinear functional-
analytic and partial differential equations techniques, and chaotic
distributed parameter systems.